The Dynamics of Driven Nonlinear Systems

9972022
Spiegel

In this project we shall study three kinds of parametrically driven systems:
(1) a periodically driven, ordinary differential equation, (2) the partial
differential equations of thermal convection with time-dependent
boundary conditions and (3) maps of the line with time-dependent control
parameters. The aim of this work is to gain insight into the ways that
environmental variations complicate the behavior of natural systems. In
the case of the ODE, we shall consider a periodically driven nonlinear
oscillator that exhibits chaos. We aim to develop the equivalent of the
Shil'nikov theory for such nonautonomous equations. The absence of
fixed points of the implied flow presents interesting difficulties for this
approach. To investigate the convection equations with time-dependent
boundary temperatures, we shall use a modal expansion procedure that
allows careful accounting of the vertical structure of the problem and we
shall check our results against direct numerical simulation. This
procedure will allow us to include complicating effects like rotation. Our
exploration of nonautonomous maps will focus on the nature of the
intermittency that they can exhibit. In such systems the basin boundaries
may become riddled and we shall compare the onset of this phenomenon
to the analogous case without dissipation when cantori form.

The simplest chaotic systems do the same things over and over again but
never the same way twice. Details of their behavior can easily be
modified by external perturbations, no matter how small. However, when
the external perturbations are persistent, they can cause the disturbed
systems to switch their overall behavior patterns dramatically, as
illustrated by the famous water-drop torture. Weak but chaotic forcing
can lead to erratic outbursts of activity punctuated by calm periods in a
process known as on-off intermittency. The minima in solar activity that
occur every few centuries and last for decades illustrate this behavior. We
wish to gain insight into how responses to persistent external perturbations
vary according to whether the perturbations are regular or irregular in
time. We know already that simple models of the earth's climate, when
subjected to the effect of continued slight fluctuations in solar output can
show swings in global conditions. We aim to deepen our mathematical
understanding of such effects through the study of tractable models of
perturbed chaotic systems. The results from such studies may provide
guidance for large-scale numerical modeling of complex phenomena such
as climate variations and population dynamics.